CAREER: Random Matrices, Random Schroedinger and Communication

This project takes on three distinct areas of research in Random Matrix Theory (RMT). The first stems from the recent discovery by the investigator and collaborators of a connection between the Tracy-Widom laws of RMT, their generalization to the so called "beta-ensembles", and a family of random Schroedinger operators. This connection opens the door to a deeper understanding of the analytic structure of Tracy-Widom laws. It also presents a new method for investigating the universality question at the spectral edge for both random matrices and random Schroedinger.
The second set of problems concerns bulk fluctuations for ensembles of matrices with no assumed symmetry. Such questions are of growing interest in theoretical physics on account of the ties between these fluctuations and the Gaussian Free Field. Finally, the investigator looks at several applications of RMT to wireless technology where probabilistic and analytic techniques from RMT are employed to estimate the capacity and performance of multiple-antenna communication systems with feedback.

Matrices and their spectra (eigenvalues) are fundamental objects throughout mathematics and its applications. The study of random matrices (again, RMT) addresses the natural question: "What do the eigenvalues of the typical matrix look like?" Or, said another way: "What properties of the spectra are universal in that they depend only on the rough characteristics (e.g. symmetries) of the matrix ensemble?" It is therefore not surprising that RMT has serious impact in disparate areas of mathematics ranging from Statistics to Number Theory to Operator Algebras, as well as in Physics and Engineering. On the theoretical front, this project brings new ideas to the study of the universal properties of the largest eigenvalues in symmetric matrices and also the bulk (or generic) eigenvalues in matrices without symmetry. On the more directly applied side, this project looks at problems in the theory of wireless technology where, interestingly, the design and performance analysis of many efficient communication systems leads to mathematical problems cast in the language of RMT. The engineering issues here are of the utmost practical importance - while the demand for wireless communications continues to grow, the spectrum remains a limited resource. Presenting a natural setting for collaborations between mathematicians and electrical engineers, this project will sponsor joint meetings along with jointly mentored graduate students and postdoctoral researchers.